Vibrational Potential Energy Surfaces and Molecular Structures in Electronic Excited States

In this project in the Physical Chemistry program of the Chemistry Division, Professor Jan Laane of the Chemistry Department of Texas A&M University will pursue investigations in order to determine the vibrational potential energy surfaces of excited electronic states. The experimental techniques to be employed include fluorescence excitation spectroscopy, sensitized phosphorescence spectroscopy, and two-photon spectroscopy of supersonic jet-cooled molecules. The system species include cyclic and multicyclic molecules, and those with internal rotations or inversions, including various carbonyl compounds and `double molecules`, i.e., those with two closely lying electronic states. Far infrared and Raman spectra will also be recorded in order to help with the determination of the ground electronic state potential energy surface. Molecular-level understanding of molecular properties and behavior depends upon accurate knowledge of the potential energy surfaces of a molecule for its ground and excited electronic states. The research conducted in this project will furnish the requisite data and analyses toward this understanding.